Computer Upgrade for the KSU Intermediate Energy Nuclear Physics Group

This grant provides a state-of-the-art MicroVAX 3500 computer system for use by the Kent State University Intermediate Energy Nuclear Physics faculty and students involved in NSF sponsored research. Essential features of the system include: fast processing time for large scale data replay, line-shape fitting, and analysis codes; large memory; high speed communications; and multi-user environment.